University/Industry Railroad Transportation Curriculum Development for Enhancing the U.S. Infrastructure and Competetiveness

9315181 Kumar This award of $180,000 is for curriculum development in computational science and engineering. The focus is on to develop new Railroad Transportation Cuuriculm for undergraduates and starting graduates. The core courses and selective courses will be deveoped in Mechanical Engineering, Civil Engineering, Electrical Engineering, Computer Science, and Business. The certificate program will be developed to satisfy the need of the industry by providing a series of related courses in the rail engineering area for retraining staff. A introductory graduate courses and program will also be developed.